U.S. Japan Long-Term Research Visit: Diesel Combustion Modeling and Inlet Port Geometrical Effects on Flow and Combustion

This award will facilitate cooperation between Professor Jay Martin of the University of Wisconsin, and Professors Tadashi Murayama and Takemi Chikahisa at Hokkaido University in Sapporo for one phase of the project. The second phase involves collaboration between Professor Martin and Yasuv Takagi a senior researcher with the Central Engineering Laboratories of Nissan Motor Company, Ltd. The computational research with Hokkaido University will focus on the development of an improved diesel combustion model for use in the multidimensional fluid-mechanics code KIVA-II. The experiment- al research with Nissan Motor Company will involve the set up of a Particle-Image-Velocimetry (PIV) system for measuring the velocity fluid in the intake part of a reciprocating engine. Both studies are likely to contribute substantially to the design of advanced combustion engines in important areas of modeling and incylinder flows. All of the researchers involved are highly qualified in their areas of expertise. Professor Martin has extensive experience in laser velocimetry in engines and a solid base in engine modeling using KIVA which is the most widely used code for incylinder engine modeling. Both the University of Wisconsin and Hokkaido University are two of the world centers of diesel combustion research. In addition, both Hokkaido University and Nissan Motor Company have an international reputation for quality research. It is anticipated that the close ties developed between the researchers will continue long after the formal project has been completed.